A Modeling Study of the Interaction of the Tropical and Subtropical Thermocline Circulation

9401599 Liu This project is to investigate systematically the interaction between the Tropical and subtropical thermocline circulation's by developing both a general circulation model and analytical models. Two main topics will be investigated: the exchange of water between the tropical-subtropical system and what determines the structure of the mean equatorial thermocline. The research is directed towards providing a valuable contribution to the understanding of the climate variability both for the Atlantic and Pacific regions.